Number Theory and Geometry

The investigator studies problems in structural and computational number
theory, notably the arithmetic of varieties such aselliptic curves and
surfaces, and their relations and applicationsto other areas of mathematics
such as error-correcting codesand Euclidean lattices. Specific projects
include:proof and computational exploitation of new relations
between p-adic modular forms of weight 3/2 and the arithmetic
of quadratic twists of odd analytic rank; improving and extending
results with Henry Cohn and Abhinav Kumar concerning bounds on
sphere packings and related questions; refinement of the Shioda-Usui
theory relating Mordell-Weil lattices with Weyl groups, and
generalization to certain complex reflection groups; continued study
of optimal recursive towers and the investigator's modularity conjecture
for such towers; extended study of the connection between bilinear
(Somos) recurrences, theta sequences, and explicit moduli spaces;
and novel applications of lattice reduction to the understanding and
efficient computation of solutions of Diophantine equations
and inequalities.

The investigator will continue to study problems in number theory
concerning the mathematical structure of algebraic solutions
of equations and the practical computation of such solutions.
This should lead both to better understanding of the structure
of those equations and their solutions (elliptic curves, etc.),
and to further connections with other topics such as the theory of
computation, error-correcting codes, and sphere packing.